On the Modularity of Certain GW-Generating Functions from E(1)

Award: DMS-9971603
Principal Investigator: Gang Tian and Ai-ko Liu

In the recent years, there have been a lot of interactions
between string theory, differential and algebraic geometry. One
main theme of these interactions is the dualities among the
different physics theories as well as their counterpart in
geometry. In the recent work of Minahan, Nemeschansky, Vafa and
Warner, they had predicted a certain family of beautiful power
series encoding the numbers of singular irreducible holomorphic
curves on a rational elliptic surface. It is rather mysterious
why the generating functions of the predicted answers constitute
the q expansions of certain modular forms. The research project
is aiming at studying the relationship between their formulas and
the geometric universal formula regarding the reducible
holomorphic curves on the same rational elliptic surface. To
fully understand their deep relationship, one has to study the
excess contributions of the multiple coverings of certain
holomorphic curves in the universal formula. The goal is to
understand the inner structure of these enumeration datum as well
as the geometric origin of the modularity behavior.

The super-string theory was originally developed to build up a
theory of everything, a fundamental theory which unifies the
rules governing our natural world. Surprisingly, extensive study
leads to some rather un-expected predictions in the ideal world
of mathematics, particularly in geometry. The last ten years
have been a blooming period that these magic ideas and
predictions in modern physics change the way mathematicians
think. A lot of new structures have been discovered which we
really do not know too much about. Despite of the intensive
activities in this research area, it is still far away from
having a complete picture toward the full understanding of the
mechanism of duality. The hypothetical string-string duality has
led to numerous predictions which the mathematicians were never
aware of. The present research project attempts to confirm some
mathematical predictions string theory has made, following the
previous research program of the author. The confirmation of
these conjectures will give strong mathematical evidences to the
consistency of the original physics theory.